Transporting Science, Computer, and Engineering Curricula to Rural Minority Students Through Telecourses and Internet

This is a proposal to deliver Electronics and Computer Engineering Technology (ECET) to Maui Community College outreach students on Moloka i, Lana i, and Hana. This fifth year of the project focuses on the delivery and evaluation of the distance learning delivery system for the ECET curriculum to MCC s three satellite campuses. Development of multimedia modules will continue. In addition there will be development of practical on-line projects that illustrate electronics and computing principles. this will include the assembly of a weather station and implementation of student-designed software. A workshop on development of self-paced laboratory courses will be offered for Maui County science and mathematics teachers in March of 1998. NSF FORM 1358 (1/94~ A. I